COLLABORATIVE RESEARCH: Paleomagnetic Constraints on the Ordovician Paleographic Setting of the British Isles, South of the Iapetus Suture

The positions for Godwana and Laurentia have been recently revised paleomagnetically and are in broad agreement with avail- able biogeographic and paleoclimatic constraints on Paleozoic paleogeography in the Atlantic realm. However, a part of the land mass involved now occur as small allochthonous terranes. The British Isles, south of the Iapetus suture, is one such terrane, and present data is insufficient to track its movement history. This collaborative proposal with workers at LSU (EAR88- 16571) will examine samples from this terrane using modern paleo- magnetic methods. Results should help clarify how this terrane fits into the paleozoic movement picture of the circum-Atlantic area and its original affinity.